EAGER: Portfolio-Based Integrated Design for Supply Chain Resilience

Supply chains are being stressed by shocks that can halt production, raise prices, and slow innovation. Companies often respond with approaches that are slow and expensive, and that can leave systems brittle when disruptions arrive early or cascade across tiers. This EArly-concept Grant for Exploratory Research (EAGER) project develops a practical alternative: maintaining large sets of partially-developed product designs alongside partially-qualified suppliers so organizations can pivot faster when something breaks. The work strengthens domestic manufacturing resilience and in doing so supports US competitiveness. The benefits of this work have the potential to impact sectors like automotive, aerospace and electronics. This work will also produce reusable software tools that help engineers and decision-makers evaluate resilience options transparently.

The research specifically establishes an optimization-based framework that treats design portfolios and supplier readiness as first-class decision variables that are optimized simultaneously. The team builds mathematical models that balance profitability with two forms of flexibility: (1) keeping multiple product alternatives at different validation levels and (2) enabling supply chain pivots that activate alternate suppliers and substitute designs when disruptions occur. The project uses robust optimization methodologies to compare plans that cannot adapt versus plans that can, quantifying the value of deferred decisions and discrete pivots under plausible disruption scenarios. Methods are evaluated on realistic combinatorial design-and-supply-chain benchmarks (including ground-vehicle-style design spaces), tracking outcomes such as profit, adaptation cost, and time-to-recover/time-to-survive. Expected results include validated formulations, scalable solution strategies, and evidence-based guidance on when and how portfolios of designs and suppliers measurably improve resilience.